Unifying Compile-Time and Run-Time Evaluation

Programming languages with higher-order functions (like ML or scheme) have a flexible abstraction mechanism, but in the implementation of these languages the abstraction is almost always evaluated at runtime. This project examines a way to use the same abstraction mechanism (higher-order functions) for both compile-time and runtime abstraction This has the advantage that the programmer needs to use only one method; more importantly, the programmer no longer needs to constantly decide whether phrases are to be evaluated at compile-time or runtime.